Partnerships for Achieving Careers in Technology and Science(PACTS)

The Franklin Institute Science Museum in Philadelphia, PA requests NSF support for a three-year model program entitled "Partnerships for Acheiving Careers in Technology and Science" (PACTS). Building upon a successful pilot project involving African-American students and mentors, PACTS aims to foster positive attitudes about science careers and increase students leadership skills and self-estee. Through bi-weekly hands-on science workshops with African-American Scientists as mentors, students will strengthen their understanding of science concepts and enhance their critical thinking skills. On alternate Saturdays, students will participate in college/career workshops. PACTS students will also have the opportunity to tutor younger students, visit science laboratories, and serve as science museum demonstrators. Additional support and encouragment will be provided through a network of community resources involving partnerships among scientists, professional associations, community centers, corporations and a science center. The PACTS model will be disseminated nationally through museum conferences, the national networks of professional associations and corporations, and presentations by PACTS staff to interested organizations in other cities.